Combined Research-Curriculum Development on Diagnostics, Health Assessment, and Predictive Maintenance of Engineered Processes and Systems

EEC-9700775 ABSTRACT The award provides funding to Colorado School of Mines under the direction of Dr. Rahmat Shoureshi, for the support of a Combined Research-Curriculum Development project entitled, " Combined Research-Curriculum Development on Diagnostics, Health Assessment, and Predictive Maintenance of Engineered Processes and Systems." This project proposes to develop and incorporate a research-based comprehensive curriculum in the area of diagnostics, health assessment, and preventive maintenance. The key objective of the program is to educate a new generation of engineers who would have analytical background knowledge, and appreciation for the vital area of diagnostics and health assessment of processes and engineered products.